Full Scale Semiactive Bridge Control

9625715 Patten PIs proposed a three year program of research that will establish the effectiveness and implementability of semiactive vibration absorbs (SAVA) for bridge impact vibration control. The purpose of this proposal is to conduct a long term study of the engineering issues raised by the application of SAVA to the ODOT (Oklahoma Dept. of Transportation) test bridge. The research will examine the testing of different control algorithms including feedback linearization, and a nonlinear bi-state control that is based on an extension of Lyapunou's method. Work will be conducted to verify the performance developed and tested. The research will also address the question of best topologies for actuators, including: (a) kinematic arrangement of actuators; (b) optimal location and placement of actuators; and (3) effect of number of actuators.